Role of Hormones in Behavior

IBN-9511077 Truman, James W. The brain contains a myriad of substances with the potential to be used as chemical messengers between cells. One class of messenger molecules are small protein-like substances called neuropeptides. These messengers can function in communication between cells where their release is a local event or in situations where they are carried great distances and act as hormones. The target tissues, either local or distant, contain recognition sites for these substances, which then use secondary systems to transmit the signal into the cell, thereby altering its level of activity. Altering the activity of a large population of cells potentially changes the physiology and behavior of the organism. Dr. Truman isolated and characterized such a peptidergic messenger molecule called eclosion hormone (EH) and has provided preliminary information on the biological significance of this messenger. In the present studies, he will investigate the mechanisms employed by neurons to generate second messengers functioning inside the neuronal targets for EH. In addition, because of his past ability to isolate the gene encoding EH, he will use molecular biological tools to generate mutants unable to produce this messenger molecule and study their behavior. These investigations will further understanding about the role of neuropeptides in the functioning of the nervous system and the mechanisms used by peptides to alter behavior.